Stark-type Conjectures "over Z" and the Equivariant Tamagawa Number Conjecture

The theory of special values of L-functions is a major, active area of
research within the general fields of number theory and arithmetic
algebraic geometry. Stark's Main Conjecture provides a link between
special values of Artin L-functions and the arithmetic of the associated
Galois extensions. In recent years, Rubin and Popescu have formulated
refined, integral versions of Stark's Main Conjecture in the case of
abelian L-functions of arbitrary order of vanishing at the origin. Also,
Burns and Flach, by reworking earlier conjectures of Bloch-Kato and
Fontaine-Perrin Riou, have formulated the Equivariant Tamagawa Number
Conjecture for certain classes of motivic L-functions. If restricted to
the case of Artin L-functions, the Burns-Flach conjecture can also be
viewed as a refined, integral version of Stark's Main Conjecture. The
Principal Investigator focuses on providing evidence for, studying the
functorial behavior of, and finding links between the Conjectures of
Rubin, Popescu, and Burns-Flach. He also works on developing
Gross-type p-adic refinements of these statements, as well as building
bridges between these statements and the Theory of Euler Systems,
Equivariant Iwasawa Theory, and the Conjectures of Brumer, Leopoldt, and
Chinburg.

The L-functions are mathematical objects of analytic (continuous) nature,
encoding an enormous amount of extremely interesting and useful
information of arithmetic (discrete) nature. The main goal of this
project is to continue a program initiated by Stark, Rubin, the principal
investigator, and Burns-Flach, and develop general recipes (conjectures)
aimed at retrieving the arithmetic data encoded in a special type of
L-functions (the Artin L-functions), and follow these recipes (in other
words prove these conjectures) in several important special cases. In
parallel, the Principal Investigator is developing links between these
conjectures and other, already developed theories, dealing with objects of
arithmetic (discrete) nature, such as the theory of Euler Systems and
Equivariant Iwasawa Theory. Aside from its importance for the central
areas of pure mathematics called number theory and arithmetic algebraic
geometry, this research could have far reaching practical applications to
the development of new data encryption algorithms.